Structure-Aware Tensor Recovery via Deep Operator Learning

Modern scientific instruments and sensing technologies create enormous volumes of high-dimensional data whose complexity often exceeds the capabilities of traditional analysis methods. Recovering reliable information from incomplete, noisy, or corrupted observations is essential for advances in scientific discovery, engineering, medicine, and technological innovation. This project develops new mathematical and computational methods by integrating tensor representations with modern artificial intelligence to enable accurate, efficient, and interpretable analysis of complex data. The resulting techniques support applications in medical imaging, computer vision, remote sensing, robotics, and mechanical engineering. The research contributes to the mathematical sciences through new computational methodologies, open-source software, interdisciplinary collaboration, curriculum development, and student mentoring. These research and educational activities help prepare the future workforce in computational mathematics, scientific machine learning, and artificial intelligence.

This project develops a structure-aware tensor recovery framework based on deep operator learning. The research establishes new mathematical methods for high-dimensional inverse problems, introduces data-driven tensor operators that capture intrinsic structures and data generation mechanisms, designs scalable deterministic, stochastic, federated, and deep-unrolled optimization algorithms, and establishes theoretical recovery and convergence guarantees. The proposed methods will be validated through numerical experiments on large-scale datasets from imaging, sensing, and scientific simulation, demonstrating improvements in accuracy, efficiency, and interpretability. The resulting mathematical theories, algorithms, and open-source computational tools will advance computational mathematics and drive the development of next-generation methods for high-dimensional scientific computing across a broad range of scientific and engineering applications.